Teaching and Learning Mathematics to High Standards in Middle School Classrooms: An AEL and Fayette County Collaborative (A Planning Grant)

9901250
KUSIMO

This planning grant is in the area of teacher enhancement. The project focus is to plan for the improvement of K-8 mathematics instruction and learning in the Fayette County (TN) Public Schools. The project involves a planning team which includes two teacher representatives from each of the seven K-8 schools in the Fayette County, two high school representatives, the Director of Schools for Fayette County, a school board representative, a higher education partner from the University of Memphis, and Appalachia Educational Laboratory (AEL) staff. Eleven district-wide meetings will be held during the planning period. The planning grant was sought to determine needs and to create a plan for implementing a standards-based focus on K-8 mathematics in Fayette County.